Mutational Studies of Nervous System Development

Mutational Studies of Nervous System Development: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research will address the study of the mechanisms by which genes control the early development, structure and function of the nervous system of a vertebrate. Specifically, the work will attempt to develop new procedures for creating mutations by the insertion of foreign DNA sequences into zebrafish genome by injecting plasmids into eggs or young embryos. The project is under the direction of Professor Monte Westerfield, Institute of Neuroscience, University of Oregon, Eugene, Oregon 97403, U.S.A., and Professor John Nicholls, Cell Biology Section, Biocenter, University of Basel, Klingerbergstrasse 70, Basel Switzerland. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.